Performance-Adaptive-Controlled Accuracy of Computer Interfaces for Manufacturing Systems

Exploratory research will be done on a novel approach to quantitative modeling and design of performance-adaptive computer interfaces for integration of data-driven automated systems. The project will evaluate, both theoretically and experimentally, adaptation of the system's sample rate and output interpolation process as a function of input signal band-width, and the signal processing gain of the system in response to signal-to-noise ratio estimates.